Acquisition of Instrumentation for Development of Reliable Technologies for Harsh Environments

Competitively awarded support for University of Idaho (UI) research
has steadily grown from $35 million in FY'96 to $63 million in FY'01.
This increase is due, in part, to the research activities of several
multidisciplinary research institutes and groups. For example, UI's
NASA Grand Challenge team provided the top-ranking concept for
detecting extraterrestrial life. This concept would be accomplished
in space using microelectromechanical systems (MEMS) technology. At
present, UI simply does not have the capabilities needed to implement
and test MEMS designs in their own laboratories for reliability in
harsh environments. In addition, UI researchers are conducting other
projects expected to result in a miniaturized tandem mass spectrometer
system, miniature resonators, micro pumps, autonomous vehicle guidance
systems, magnetic random access memories, and magnetic films for small
monolithic microwave integrated circuits. All of these research activities
will benefit from the added capabilities requested through the Major
Research Instrumentation Program.

As a result of current progress in funded research projects, and with
the support of the university's administration, the PIs seek to acquire
instruments to fabricate, test, and evaluate the robustness of new
technologies. This request includes a plasma enhanced chemical vapor
deposition system, an e-beam evaporator, a vibration / shock table, a
thermal vacuum chamber, and a laser vibrometer. Acquisition of these
instruments will also provide more opportunities to integrate research
training with graduate and undergraduate education. The University of
Idaho is requesting approximately $290,000 from the National Science
Foundation from a total project cost of over $611,000. This equipment
will add significant capabilities to their region by complementing
existing equipment at neighboring Washington State University and by
providing research equipment that is currently unavailable in the inland
Northwest. It will also provide additional opportunities for participants
in Idaho's HOIST program (Helping Orient Indian Students and Teachers to
Science and Technology) to get hands-on experience in engineering
research.

The project will be managed by experienced PIs who will use proven
instrument management approach to ensure efficient operation and
maintenance of the equipment. A qualified engineering technician will
assist them. The equipment will be housed within a single building on
the main UI campus, and this MRI award will receive full administrative
support from the Director and staff of the UI Microelectronics Research
and Communications Institute.